Direct Reconstruction of Surface Atomic Structures: Holography and Beyond

9320275 Saldin Although electron diffraction techniques have been successful at revealing many of the complex and unusual atomic structures which exist at solid surfaces, they are hampered by their most common methodology to date, which is to compare simulated diffraction patterns for a large number of model structures with experiment. Unfortunately, this limits their ability to determine complex unknown structures because of the very large number of structural parameters which need to be varied. The computer time scaling of such trial and error techniques is known to scale exponentially with the number of optimized parameters (an NP-complete problem). Recently, holographic techniques, as developed for optics, have been shown to hold promise in overcoming some of these difficulties for determining surface structure by electron diffraction. This research will use the only method that explicitly addresses the nonlinear object wave terms whose non-negligible nature is the main barrier to accurate structure determination by purely holographic algorithms. This method employs the unique idea of using a linear programming based algorithm to iteratively optimize the solution to the nonlinear problem. The theoretical work will be applied to experimental data of low energy electron diffraction, Auger and photoelectron diffraction from both clean and adsorbate-covered surfaces. %%% This analytical and computational research will focus on a new way of interpreting experiments that determine the atomic structures of surfaces. The method is analogous to that of holography as used in optics. In this case the experimental probes are electrons instead of light. Successful completion of this project will yield a rapid and accurate method to determine surface structures. This determination is important for basic research, but is particularly important in applications ranging from catalysis to corrosion. ***